Gauge Theory and Geometry in Dimensions Three and Four

Abstract

Award: DMS-0405271
Principal Investigator: Peter B. Kronheimer

The aim of this project is to apply gauge-theory techniques to
the study of three-dimensional manifolds. The principal
investigator proposes to investigate Floer homology and closely
related areas of geometry, and hopes to shed light on the
applicability of gauge theory to problems in three-dimensional
topology and geometry. Potential applications of gauge theory
include a proof of the "Property P conjecture", which states that
a non-trivial surgery on a non-trivial knot cannot yield a
simply-connected 3-manifold. There are expected to be other
applications of Floer homology to questions about surgery on
knots. As part of this program, the principal investigator will
complete a thorough investigation of the foundations of
Seiberg-Witten Floer homology. A similar study of the
closely-related instanton Floer homology is at present obstructed
by difficulties stemming from the non-compactness of instanton
moduli spaces. The principal investigator intends to examine
these obstructions with a view towards having a more complete
instanton Floer theory.

Topology is the qualitative study of space and its connectedness.
Its importance was recognized at the turn of the last century by
the French mathematician Poincare, during his investigation of
the laws of motion that govern the movement of a three-body
system such as the Earth, Moon and Sun moving according to
Newton's laws. In the past twenty years, topology has seen
applications in questions such as the knotting of proteins and
DNA, and in modern theories of high-energy physics. The topology
of three-dimensional spaces, as opposed to those of higher
dimension, is of particular subtlety. Through this project, it
is hoped to bring new techniques to bear on outstanding questions
in three-dimensional topology. These techniques -- gauge theory
and the Seiberg-Witten equations -- originated in physics, where
they had potential application to fundamental questions such as
quark confinement. They have been an effective tool in the study
of four-dimensional spaces (such as our space-time). The aim now
is to apply the same techniques to questions in dimension three.